Rigidity phenomena in geometry and dynamics

Geometry seeks to understand the shapes of objects and the symmetries they possess. While the shape of an object often determines its symmetries, an equally fundamental question is whether the symmetries themselves determine the underlying shape. This proposal investigates this inverse relationship by studying spaces that admit highly structured transformation groups, particularly those arising from matrices. The central objective is to understand when sufficiently rich symmetry forces a geometric object into an explicit and highly constrained form, making it possible to classify and even reconstruct it from its transformations alone. Beyond its intrinsic mathematical significance, the resulting theory has the potential for long-term impact in areas where geometric structures and symmetry play fundamental roles.

To address these questions, the research focuses on lattices in Lie groups, a fundamental class of matrix groups with deep connections to geometry, dynamics, and algebra. The goal is to understand how the algebraic structure of these groups constrains the geometry, topology, and dynamics of the spaces on which they act. The proposed work develops new techniques that combine differential geometry, dynamical systems, geometric group theory, representation theory, and analysis. Three interconnected research directions form the core of the program: (1) extending Zimmer's program through the rigidity and classification of actions on flag manifolds and related boundary spaces; (2) establishing Property Rapid Decay for higher-rank lattices via boundary representations and dynamics; and (3) characterizing locally symmetric spaces using geometric and dynamical rigidity phenomena. By extending classical rigidity theory to boundary actions and other non-classical settings, the research is expected to produce new classification theorems, new analytical techniques, and deeper connections among geometry, dynamics, and group theory. It will also provide interdisciplinary research opportunities for graduate students and postdoctoral researchers, helping to train the next generation of mathematicians.